Workshop on the Development of Remote Sensing and In situ Seawater Temperature Measurement Capabilities: Florida, January 1994

9319947 Ogden This Americas award will support a group of approximately 25 U.S. and Caribbean scientists representing 19 regional marine laboratories, to participate in a workshop organized by Professor John Ogden of the University of South Florida and collaborators. The workshop, which will take place in Keys Marine Laboratories, Florida, will consider the application of the region-wide ecosystem and physical time series measurements being made at present, to remote sensing of sea surface temperature and ocean color. This project builds on the Caribbean Coastal Marine Productivity (CARICOMP) program, a network of marine laboratories in the Western Tropical Atlantic region, developed under the support of UNESCO and NSF and currently supported by the MacArthur Foundation. CARICOMP monitors the state of coastal oceans in reef, mangrove and seagrass ecosystems. The present program will promote the development of regional ground truth measurements for current and future remote sensing capabilities in the U.S. and will develop potential collaborators and users of remote sensing data within research institutions in 15 countries bordering the Caribbean sea. The regional data to be developed under this project will contribute fundamentally to our understanding of the impact of global change on the biologically diverse ecosystems of the tropical coastal zone. ***